RUI: A Nuclear Gene Required for Mitochondrial Function in Neurospora crassa

This grant supports research which is aimed at studying the nature of the natural death (nd) mutation in the lower eukaryote Neurospora crassa. A major focus of the research will be to isolate the nd gene using mutant complementation and/or sib- selection from a N. crassa genomic library. DNA sequencing of the isolated gene will allow a comparison, by computer, to other known gene sequences which may provide some insight into the nd gene's function. The control of nd gene expression will also be examined under various metabolic conditions. A second area of study will be to analyze in more detail the changes in mitochondrial DNA that occur in the nd mutant, and to determine the effects of these changes on mitochondrial transcription and and translation.